Topics in the Theory of Algebraic Geometric Codes

Abstract: This award supports preliminary research in the area of algebraic geometric codes. In earlier work, the principal investigator combined the study of algebraic geometric codes with another active and fertile area within coding theory by introducing algebraic geometric codes over rings. She proved several foundational results on these new codes, thus laying the groundwork for applications. These applications will now be pursued. In particular, the PI will begin by deriving a good bound on the minimum Euclidean and Lee weights of these codes, which should lead to the construction of new nonlinear binary codes with good parameters. She will also investigate the feasibility of defining algebraic geometric codes coming from abelian schemes over rings. In addition, the PI will begin research in a different area within coding theory, that of decoding algorithms for algebraic geometric codes coming from curves over finite fields.